Roots, Resilience and Reach: Strengthening the STEM Infrastructure at Kapi'olani Community College, University of Hawai'i

The proposed program, Roots, Resilience, and Reach: Strengthening the STEM
Infrastructure at Kapiol'olani Community College, will build on the cultural knowledge and experience of our students (roots), support student retention and academic success (resilience), and provide compelling new transfer and career opportunities in their second year (reach).

We anticipate that the TCUP will stimulate the following "value-added" dimensions to our
STEM infrastructure by: (1) strengthening the STEM infrastructure so the College becomes a salient "incubator of science talent" focused on preparing "a diverse, internationally competitive and globally-engaged STEM workforce and well-prepared citizens"; (2) emphasizing STEM opportunities for more Hawaiian students to pursue STEM majors and successfully complete their degrees; (3) enhancing STEM curriculum through four guided pathways to help the Colleges' students pursue STEM majors and successfully complete their degrees; and (4) expanding STEM outreach programs to improve the preparation of the College's entering students and enhance their rate of success.